Nearshore Research Workshop

OCE-9820783
Asbury H. Sallenger

This Interagency transfer will contribute to support participation in a community workshop on future research directions in nearshore sediment transport and deposition. The workshop is sponsored by USGS, with contributions from several other agencies. In addition to identifying the most important directions for the next five years, participants will also discuss how to make their work relevant to societal needs, and how to expand their interactions with related fields of science.